SMART Eureka...

Girls Inc. will develop a national model summer program for girls aged 12 to 16 to encourage their interest in science, their enrollment in science courses in high school, and their interest in science careers. The recruitment of girls from low-income and minority families as participants will be a high priority. The program will represent a synthesis of Operation Smart, an afterschool science and mathematics program, and Eureka Teen Achievement Program, which introduces science and mathematics in summer programs through sports. The program will be developed and field- tested in five diverse Girls inc. sites around the country and to other interested groups. Substantial formative and impact evaluation is planned.